Innovations for the Advancement of Direct-Write Circuit Board Fabrication

Innovations in the manufacture of a very widely used electronic component, the circuit board, are considered. In particular, fast photographic systems which would promote the use of computer-controlled direct-write laser techniques are introduced. The project concerns two advancements in direct-write circuit board fabrication. The first advancement involves the use of techniques developed for integrated circuit microlithograhpy to achieve increased photo-resist speed and a wider spectral range of the laser direct-write exposure sources. The second advancement seeks to do away with photo-resist step by using a direct-write conducting wiring board pattern, followed by chemical and physical development and copper plating. The research will evaluate the feasibility of the concepts. Successful implementation of the concepts would enable mask- free direct-writing of circuit boards at high throughput rates, typically five square feet per minute with five micron resolution. The potential impact on small batch and prototype board markets is high.